Outreach To Space -- Collaborative Models for Rural Community Engagement -- Active Science Learning In Informal Public Venues

SCITECH will develop and deliver ten sets of twelve portable interactive exhibits and educational programs on space exploration to 220 venues in five states. The project is based on a collaborative of ten small science museums: Imaginarium (Anchorage, AK); Bluedorn Imaginarium (Waterloo, IA); Science Station (Cedar Rapids, IA); Discovery Center (Rockford, IL); Lakeview Museum (Peoria, IL); SCITECH (Aurora, IL); Evansville Museum of Arts and Science (Evansville, IN); Science Central (Fort Wayne, IN); Children's Science Museum (Terre Haute, IN); Science Works (Ashland, OR). The Exploratorium will build the exhibits and conduct a residency program of professional development for staff from the participating museums.

The exhibits and programs are intended to reach some 330,000 people in rural and lower-economic areas at 220 nontraditional destinations (fairs, festivals, libraries, scouts and youth clubs). These activities are designed to increase interest in and knowledge of astronomy and space exploration. In addition, this project will provide capacity building and professional development for the small museums, as well as a model that can be used by others not participating directly in this project.